Variability of Antarctic Bottom Water Inflow to the North Atlantic

Limeburner The variability of the inflow of Antarctic Bottom Water (AABW) into the North Atlantic will be investigated by deploying three, low cost, deep current meter moorings for 4 years. The site will be at the equator in the Western basin of the Atlantic where a two-year record show a possible warming trend accompanied by a decline in AABW transport. The primary scientific question is to determine whether this trend is real and associated with long-term changes in circulation of the North Atlantic.